Mathematical Sciences: Geometric Aspects of Stochastic Problems

The principal investigator will study certain random phenomena using ideas from geometry, especially convex geometry. The latter will provide spatial insight together with novel analytical tools. Among the questions to be considered are certain features of Gaussian processes, hypothesis testing of directional data, random matrices, a spatial median, random curve models, and a new approach, to statistical theory of shape. Applications of the investigator's work will be to image processing and biology.